Geometry and Topology of Riemannian Manifolds

ABSTRACT DMS - 0204671.

The principal investigator plans to continue his work on global problems
in differential geometry and related areas. Special emphasis will be devoted
to the pursuit of global Riemannian geometry via additional structures.
This includes but is not limited to structures arising from the presence
of symmetries, and to structures arising from taking external or internal limits.
Our efforts concerning investigations of relations between curvature,
symmetry and topology is guided by the program set forth by the aim:
``Classify or describe the structure of manifolds with positive or
nonnegative curvature and large isometry groups". This area is currently
experiencing significant advances in various directions. The project will
also include investigations of structures arising from the collapse
of manifolds under a lower curvature bound, and of metric invariants
coming from investigations of the structure of various spaces of finite metric spaces.

The significance of the main part of the proposal is twofold. On the one
hand there are many geometric situations where no symmetries are present
from the outset, but where symmetries emerge non-trivially from the geometry.
Among such situations are rigidity problems and collapsing problems under
bounded curvature. General results achieved through the work proposed can
then be invoked and help solve the original problem, where no symmetries
were present. This method has already been used successfully.
On the other hand, the proposed work provides a systematic approach for
finding new examples of spaces with positive or nonnegative curvature,
arguably one the most central and difficult issues facing global
Riemannian geometry today.